PRF/J: The Direct and Indirect Effects of Temperature and Food on Life History and Production of Pseudochironomus Richardsoni

Direct and indirect effects of temperature and food resources on the life history and production of the aquatic insect Pseudochironomus richardsoni (Diptera: Chironomidae) will be determined by this research. Field studies are to be conducted in the Eel River of northern California. In this system, larvae of the midge Pseudochironomus are an integral link in the trophic cascade by which carnivorous fish affect the abundance of algae in the river. Specific objectives are to: (a) compare estimates of seasonal production by the midge in distinct river habitats that vary in temperature and food resources, (b) determine variability of relevant physical factors and food resources using path analysis, (c) by means of radioisotope techniques, identify physiological mechanisms involved in the interactions between Pseudochironomus, diatoms (Cladophora), and algal epiphytes such as green algae (Zygnema). %%% Prior laboratory studies have examined effects of temperature on interactions of primary consumers, chironomids, and algal foods and habitats but the tendency has been to perform such studies by rearing chironomids in isolation from other species. This research has the advantage of integrating larger scale investigations with small scale enclosure experiments and laboratory studies of midge- algae interactions. Results should reveal whether shelter provided by floating algal mats enhance chironomid growth and numbers. These small aquatic invertebrates serve as essential prey items for fish species of the northwestern United States, such as salmonids, whose recent numbers have declined along with the quality of running waters. This research focuses on gaining a better understanding of interactions at the base of the aquatic food pyramid (the critical primary producers and consumers), and can provide a basis for studies at higher levels on the trophic pyramid as well.